Equipment: MRI: Track 1 Acquisition of a Cyber-Enabled RapifleX MALDI-TOF/TOF MS to Advance and Modernize the Capabilities at a Multi-User Facility at the University of Toledo

This award will fund a Mass Spectrometer with high-speed imaging capability (MALDI - MS) at the University of Toledo (UToledo). The new instrument will replace and modernize the 16-year-old system that has reached the end of its operational lifetime. This acquisition will provide speed and data quality enabling novel investigations that are currently not possible at UToledo. The new MALDI-MS will support research addressing issues of national importance, including harmful algal toxins in Lake Erie. The instrument’s advanced imaging capabilities will allow researchers to visualize the distribution of drugs, toxins, lipids, and biomolecules directly within tissues, cells, polymers, and environmental samples. This award will significantly enhance research and workforce training for undergraduate, graduate, and postdoctoral researchers and will support more than 130 researchers. A unique aspect of this project is its cyber-enabled remote-access opportunity. Using remote-control software and live video, researchers, educators and students from institutions lacking advanced instrumentation will be able to operate the MALDI-MS from their own classrooms and laboratories.

This project will acquire a Matrix Assisted Laser Desorption/Ionization dual Time-of-Flight Mass Spectrometer with advanced imaging capabilities for a multi-user instrumentation center at UToledo. The instrument will provide substantially improved mass resolution, mass accuracy, sensitivity, and spatial resolution compared to the existing first-generation MALDI-MS system. It will initially support 20 primary research groups and regional collaborators and is anticipated to attract many more user groups over time. Furthermore, the acquisition will also support undergraduate and graduate courses, industrial users, and nationwide remote-access STEM-education. The MALDI-MS will enable fast, high resolution molecular imaging and characterization experiments. This project aligns with the NSF’s biotechnology priority area.